Expert Systems Research with the Knowledge Engineer's Workbench

This is an award resulting from a submission in response to Program Announcement NSF 88-28, Research Experience for Undergraduates. Under this award The American University will provide ten undergraduate students with training and support while they participate in ongoing research projects in the University's Computer Science Department. The award recognizes the importance of hands-on experience in active research for training undergraduates for careers in mathematics, science and engineering, and that too few such experiences are now available. The University recruited most of the students from other institutions, in order to broaden the base for attracting students to scientific careers.